Creation and Implementation of an Integrated and Investigative Cellular and Molecular Biology Emphasis

Biological Sciences (61) Emory and Henry College is creating a new curriculum in Cell Biology and an updated curriculum for Molecular Biology as part of an integrated and investigative cellular and molecular biology emphasis. The new laboratory equipment is being used by undergraduates in a series of laboratory experiments, investigative in nature. The project is also expanding faculty expertise and exposure to innovative pedagogy, thus furthering their professional development. The analytical instrumentation is being used to: 1) Establish a Cell Biology course and revitalize the Molecular Biology curriculum to provide direct access for students to modern investigative methodologies essential to understanding of basic biological concepts, 2) Provide students with the curriculum necessary to be competitive both in the workplace and in graduate and professional schools, and 3) Ensure a high quality of education to disadvantaged and traditionally underrepresented students. The project adapts and implements the successful project of Dr. Amelia Ahern Rindell (DUE 9851477) of Portland State and materials in the NSF Workshop on Curricular Developments in the Analytical Sciences.